Two Body Dynamics in General Relativity

The dynamics of the relativistic two-body problem will be studied in
the limit where one of the bodies is very much more massive than the
other. The extreme mass ratio is amenable to analytic treatment, and
can be used to describe a neutron star or similar object interacting
with a super-massive galactic black hole. The primary questions to be
addressed concern the dynamical stability of the orbits and the
transition from inspiral to plunge. This should shed light on our
ability to extract information from the gravitational waves emitted
during the final stages of the orbital evolution. A variety of new
and existing techniques will be developed and applied.

The evolution of two masses under their mutual gravitational attraction
is a major outstanding problem in classical general relativity. It has
a direct bearing on the observational program of the Laser Interferometer
Gravitational wave Observatory (LIGO). The possibly that the orbital
evolution is effectively chaotic has a number of interesting theoretical
and observational consequences.